Coherent and Squeezed Phonons: Control of Lattice Vibrations with Light Pulses

9876862
Merlin

This project investigates the use of ultrafast lasers to generate vibrational states at THz frequencies where both the amplitude and the fluctuations, i.e., noise, in the ion motion can be coherently controlled. The goals of this research are to provide a full characterization of such (coherent and squeezed) states, to elucidate the generation mechanisms in the opaque regime, and to develop a capability for attaining high-intensity phonon fields for lattice-control purposes. This latter task, focusing on resonant excitation, relates to fundamental studies of lattice anharmonic effects and potential applications in the areas of ultrafast X-ray modulation and coherent annealing of impurities. This project offers excellent opportunities for undergraduate and graduate students to acquire skills in materials science and state-of-the-art optical techniques.
%%%
This project centers on the generation of high-frequency vibrations and control of the atomic motion using ultrafast lasers. The program covers both fundamental and applied aspects. Potential applications include the processing of materials for the semiconductor and optoelectronics industry and ultrafast modulation of X-rays for time-domain structural studies in a wide range of fields. The research offers excellent opportunities for the training of undergraduate and graduate students in a forefront technological field.
***